FRG: Rational billiards and geometry and dynamics on Teichmuller Space

Abstract

The principal investigators will work on two fundamental
projects in the field of geometric analysis. The first
project concerns the interrelated analytic study of
rational billiards, moduli spaces of abelian
differentials, and the dynamics of the Teichmuller
geodesic flow. A recent theme has been the interplay
between the dynamics on flows on homogeneous spaces on the
one hand, and the dynamics of flows on rational billiards
and flat surfaces on the other. This synergy has led to
recent breakthroughs in both subjects. Broadly speaking, the
principal investigators propose to apply the methods and
ideas developed in the case of homogeneous spaces to study
rational billiards and dynamics on Teichmuller space.
The second project is to give a combinatorial approach
to the study of Teichmuller Space and its geometry. One
of the major goals is to develop a complete analogue
between this theory and the classical theory of the
geometry of the modular curve.

Many natural phenomena are studied via the branch of
mathematics known as dynamical systems. One important
example is planetary motion. Another centuries old example
is the theory of billiards, or the study of collisions of
molecules. Triangular billiards occur in the study of
elastic collisions of two masses in an interval. The
study of a dynamical system can take many forms. One
example is to study periodic orbits (or repeating
behavior); another is to study choatic behavior.
The principal investigators plan to study a variety of
dynamical systems that occur in mathematics. One of the
prominent topics will be billiards in polygons in the
plane, and a generalization known as flat surfaces.
These surfaces also fit together into a family known as a
moduli space, and the principal investigators plan to
study dynamics on moduli spaces. A major component of the
project will be educational. The principal investigators
plan to give workshops for students, both at the
undergraduate and graduate levels, in order to introduce
them to these fields of mathematics.